Evolutionary Updating of Model Structure and Parameters

The validation of structural analytical models in practice is mainly based
on comparing both experimental static and dynamic data with model predictions.
The objective of this project is to develop an algorithmic framework suitable
for distributed processing which updates both the model structure (constitutive
laws, modeling idealizations, discretization) and model parameters (material
parameters) to produce a test validated model capable of predicting the
response/character of the structure when subjected to a wide range of inputs
and design changes.

The algorithmic framework is based on the Genetic Algorithm (GA) optimization
paradigm. The GA paradigm loosely implements Darwin's "survival of the fittest"concepts and attempts to evolve better solutions to a given problem statement.
The GA paradigm is being used because it does not require sensitivity
information (which doesn't exist for model structure changes) and can seamlesslyhandle both continuous and discrete design variables. Several GA formulations
are being developed which address the computational efficiency of the algorithm
based on what experimental data is available and the model structure and
parameter changes that are allowed.

Even with advances in computational power, model updating can be applied to
realistic problems only if a suitable approximation theory relating changes
in vibration properties to changes in model structure and parameters is
developed. An iterative structural dynamics modification theory is under
development which provides accurate approximations in a computationally
efficient manner.

The major impact of this project is that upon completion a framework for
developing test verified structural models which can be used with confidence
in model-based simulations will be established. The ability of engineers
to rely on model-based simulations will have a profound impact in a wide
range of areas, including product design/development, product safety
evaluation, national security and infrastructure assessment.